Upgrading of Spectroscopic Techniques in the Undergraduate Curriculum

The undergraduate instruction for chemistry majors is being upgraded and the curriculum modified. The new curriculum is introducing new laboratory courses in the instruction of advanced theoretical topics and laboratory techniques within the department. The two laboratory courses are making extensive use of NMR spectroscopy; one is an intermediate level course in Organic Spectroscopy and the other is a senior laboratory for chemistry majors. In addition, the department is adding experiments utilizing variable temperature NMR and decoupling in these and other courses within the curriculum. The department purchased a Varian EM360L Nuclear Magnetic Resonance Spectrometer equipped with an EM3630 Decoupling Accessory and an EM3640 Variable Temperature Accessory for use in accomplishing these goals. The grantee is matching the award from non-Federal sources.